Molecular Symmetry and Polymer-Polymer Thermodynamics

Bates Theoretical descriptions of the phase behavior of bulk polymer systems, including polymer-polymer mixtures and block copolymers, have generally assumed molecular symmetry between components. Recent experiments with model linear polyolefin homopolymers and block copolymers have demonstrated that the phase behavior, and surface segregation tendencies, of these materials can be correlated with differences in the conformational symmetry parameter. The symmetry parameter characterizes differences in the manner in which polymers (or blocks) fill space conformationally versus volumetrically. In the presence of a symmetry breaking surface, or at a microdomain interface, differences in the parameter will provide an entropic driving force for preferential wetting, or a specific interfacial curvature, respectively. These effects will be examined experimentally by preparing well-defined polyolefins and studying their bulk phase behavior and surface properties using a variety of methods. Model polyolefin specimens will be produced through the catalytic hydrogenation of anionically synthesized unsaturated hydrocarbon polymers. Bulk phase behavior will be established using dynamic mechanical spectroscopy and small-angle neutron scattering (SANS) measurements, with the objective of establishing relationships between the symmetry parameters and the various ordered phases found near the order- disorder transition. Surface studies will focus on two classes of materials: linear and star homopolymer mixtures and starblock copolymers. Neutron and X-ray reflections, and SIMS experiments will be used to determine how variations in the symmetry parameters influence surface segregation. %%% The overall goal of this research project is to develop methods for manipulating polymer-polymer thermodynamics by exploiting conformational and architectural symmetry, in order to guide the rational design of advanced polymer-based materials.